Undergraduate Laboratory Instrumentation for Biotechnology.

This Department has initiated a series of courses with emphasis in Biotechnology. The new fermentation equipment purchased through this grant is making it possible to offer laboratory components of these courses. One 7.5-liter fermenter and two 2-liter fermenters are updating and supplementing existing equipment used in the Biotechnology- related courses, allowing introduction of current fermentation and chemical engineering techniques. This equipment also will be made available to students conducting undergraduate research. The new equipment helps students acquire hands-on experience with scientific equipment they may encounter as they go on to advanced studies or to employment in Microbiology-, Biology- or Chemistry-based careers.